ITR: Fast Superconducting Qubit and Qugate for Quantum Computing

EIA-0082499
Siyuan, Han
University of Kansas

Title: ITR: Fast Superconducting Qubit and Qugate for Quantum Computing

An interdisciplinary team of experimentalists and theoreticians from the University of Kansas and the Japanese Ministry of Posts and Telecommunications are collaborating to explore the use of superconducting interference devices for quantum computing. The SQUID devices under investigation consist of Josephson junctions embedded in a superconducting loop, and will be used to implement quantum bits and quantum gates. This work concentrates on two problems:

1. To increase the decoherence time of qubits using niobium nitride (NbN) as the superconducting material. NbN has much lower intrinsic damming than the commonly used niobium SQUID. The Japanese collaborators, who have the best NbN junction fabrication facilities in the world, will make samples of tunnel junctions and SQUIDs. These will be sent to Kansas for measurement of decoherence times.

2. To conduct an integrated theoretical and experimental study of Controlled-Not gates using SQUID.